Computational and Bifurcation-Theoretic Study of Reaction- Diffusion and Navier-Stokes Equations

Three projects are planned, combining the numerical solution of partial differential equations with bifurcation-theoretic analysis. First, a simplified model of the Belousov-Zhabotinski reaction, designed for computational speed, is to be studied. Second, a new numerical method has been developed for temporal integration of large stiff systems. This method achieves stability without matrix inversion by instead exponentiating a small (Krylov) matrix. The method will be modified to solve the Navier-Stokes equations and its properties will be analyzed theoretically. Third, an existing numerical code which solves the Boussinesq equations of Rayleigh-Benard convection in a cylindrical geometry, will be used to study the breaking of axisymmetry, the effects of rapid rotation, and the validity of two-dimensional model equations for pattern formation. Numerical solutions of partial differential equations are important both in their own right and in applications to a wide variety of physical science and engineering applications.